Mathematical Sciences: Logical Issues in Constructive Mathematics and Metamathematics of Algebra

Scowcroft's work, in mathematical logic, will center on constructive mathematics and the model-theory of p-adic fields. Having found an effective test for the constructive truth of propositions, in real algebra, of a bounded logical complexity, Scowcroft hopes to isolate a convenient set of axioms for these constructively true propositions. He also wants to learn whether first-order real algebra in Dana Scott's model for intuitionistic analysis is recursively undecidable. Scowcroft's new model for intuitionistic analysis may permit him to develop a new model for first-order real algebra, and recent work on subanalytic sets may allow him to extend his effective test for constructive truth to propositions involving certain transcendental functions. In the model-theory of p-adic fields, Scowcroft plans to study the properties of definable equivalence relations, the differences in expressive power between the first-order languages commonly used to describe a p-adic field, and the efficiency of quantifier-elimination procedures for Macintyre's first-order theory of the p-adics. These issues in the foundations of algebra bring modern mathematical logic to bear upon another related area. Syntheses of this sort have been the source of some of the most significant mathematics of our time.